NATO Advanced Study Institute on Computer Aided Analysis of Rigid and Flexible Mechanical Systems; June 27-July 9, 1993;Troia, Portugal

During the last few years, major scientific progress has been achieved in fields related to computer aided analysis of multibody systems. In view of this progress and recent developments of computer hardware and general purpose software, there is a need to access the current state of art and results from different schools of thought, with the objective of focusing trends in future research. This Advanced Study Institute (ASI) will bring together developers of different segments of these schools of thought as lecturers, with advanced design engineers and researchers as students, for the purpose of presentation, refinement, and publication of a comprehensive work on different methodologies in Computer Aided Analysis of Rigid and Flexible Mechanical Systems.